Facility Development Criteria for Prototype Laboratories for Secondary School Science Instruction

9553585 Lidsky The teaching of science, mathematics, and technology education is changing to more hands-on, laboratory rich experiential learning as teachers and schools explore new ways to teach. Computers and sophisticated instrumentation in schools are increasing as are efforts in cooperative learning, team teaching, project-based learning and student research. Boundaries between disciplines are blurring. However, little has been done to define the physical facilities necessary to support and sustain improved teaching and learning. The demands placed on facilities by educational reform are studied to provide facility development criteria and guidelines for programming, planning, and designing prototype spaces for learning in the sciences, mathematics and technology education. The study defines a process for planning that can be used to verify needs and implement change. The project is guided by an Advisory Committee to provide the vision and case studies of educational reform. A Consultant Group of teachers and others assist in data gathering and interpretation. Both groups review the final documents. The main audience for the products of this project are teachers involved in facility development or renovation; but it is also useful to parents, board members, administrators, and government officials.